Integrated fluid inclusion and petrological studies of the PACMANUS hydrothermal system - building upon the results of ODP Leg 193

This project will acquire new samples from the PACMANUS hydrothermal system during an already scheduled oceanographic cruise and will conduct fluid inclusion and petrologic studies of the silicate and sulfate mineral assemblages. On the basis of heating and freezing techniques, fluid inclusion geothermometry will elucidate the past thermal history of the system and complement information gleaned from vent fluid sampling, isotopic analyses, mineral chemistry, and thermal measurements. Microprobe studies of the inclusion-bearing samples will constrain mineral chemistry and provide the context for the fluid inclusion studies. Through a collaborative effort, samples may also be analyzed for Cl/Br and chloride isotopes, a new technique that may constrain the nature of the volatile input based on principles related to the fractionation of species between brines and vapor. The research program will contribute to further analysis of samples obtained during ODP Leg 193 drilling at PACMANUS and to the assessment of this site for potential future drilling as part of IODP. The research will involve an undergraduate student at every phase of the project, including the oceanographic cruise.